Travel to the ACM/SIGIR International Conference on Research and Development in Information Retrieval: Grenoble France, June 13-15, 1988

This award provides travel funding for twenty participants to attend the ACM/SIGIR International Conference on Research and Development in Information Retrieval. This conference is sponsored by the Laboratoire de Genie Informatique - IMAG - of France, in cooperation with the (U.S.) Association for Computing Machinery (ACM) Special Interest Group in Information Retrieval (SIGIR). Massive amounts of textual and other non-numeric information are generated daily worldwide. The need to store, access, and retrieve this information effectively makes the issues of information retrieval research highly relevant. By participating in the ACM/SIGIR International Conference, American scientists maintain their active role and leadership in the worldwide community of researchers in information retrieval.